Study of Fluid Mechancis and Heat Transfer Associated with Motion of Particles in Thermal Plasma for Thermal Plasma-Aided Manufacturing

The PI proposes to develop a comprehensive model for thermal plasma arcs while including flow and heat transfer to particles. A full 2-dimensional simulation of the plasma on a macroscopic level will be developed while a separate but linked microscopic model of the particles will be attempted. The PI claims that "New Science" involving the details of the microscopic model for the particles will be developed. This will include the consideration of non-spherical particles and a Lagrangian formulation of the governing equations. Sophisticated gridding techniques will be used for the particle interactions.